SI2-SSI: FAMII: High Performance and Scalable Fabric Analysis, Monitoring and Introspection Infrastructure for HPC and Big Data

As the computing, networking, heterogeneous hardware, and storage
technologies continue to evolve in High-End Computing (HEC) platforms,
it becomes increasingly essential and challenging to understand the
interactions between time-critical High-Performance Computing (HPC)
and Big Data applications, the software infrastructures upon which
they rely for achieving high-performing portable solutions, the
underlying communication fabric these high-performance middlewares
depend on and the schedulers that manage HPC clusters. Such
understanding will enable all involved parties (application
developers/users, system administrators, and middleware developers) to
maximize the efficiency and performance of the individual components
that comprise a modern HPC system and solve different grand challenge
problems. There is a clear need and unfortunate lack of a high-performance and
scalable tool that is capable of analyzing and correlating the
communication on the fabric with the behavior of HPC/Big Data
applications, underlying middleware and the job scheduler on existing
large HPC systems. The proposed synergistic and collaborative effort,
undertaken by a team of computer and computational scientists from OSU
and OSC, aims to create an integrated software infrastructure
for high-performance and scalable Fabric Analysis, Monitoring and
Introspection for HPC and Big Data. This tool will achieve the
following objectives: 1) be portable, easy to use and easy to
understand, 2) have high performance and scalable rendering and
storage techniques and, 3) be applicable to the different
communication fabrics and programming models that are likely to be
used on existing large HPC systems and emerging exascale systems. The
transformative impact of the proposed research and development effort
is to design a comprehensive analysis and performance monitoring tool
for applications of current and next generation multi
petascale/exascale systems to harness the maximum performance and
scalability.

The proposed research and the associated infrastructure will have a
significant impact on enabling optimizations of HPC and Big Data
applications that have previously been difficult to provide. These
potential outcomes will be demonstrated by using the proposed
framework to validate a variety of HPC and Big Data benchmarks and
applications under multiple scenarios. The integrated middleware and
tools will be made publicly available to the community through public
repositories and publications in the top forums, enabling other MPI
and Big Data stacks to adopt the designs. Research results will also
be disseminated to the collaborating organizations of the
investigators to impact their HPC software products and
applications. The proposed research directions and their solutions
will be used in the curriculum of the PIs to train undergraduate and
graduate students, including under-represented minorities and female
students. The technical challenges addressed by the proposal include: 1)
Scalable visualization of large and complex HEC networks so as to
provide a near instant rendering to end users, 2) A generalized data
gathering scheme which is easily portable to multiple communication
fabrics, novel compute architectures and high-performance middleware,
3) Enhanced data storage performance through optimized database
schemas and the use of memory-backed key value stores/databases, 4)
Support in MPI, PGAS, and Big Data libraries to enable the proposed
monitoring, analysis, and introspection framework, and 5) Enabling
deeper introspection of particular regions of application. The
research will also be driven by a set of HPC and Big Data
applications. The transformative impact of the proposed research and
development effort is to design a comprehensive analysis and
performance monitoring tool for applications of current and next
generation multi petascale/exascale systems to harness the maximum
performance and scalability.